Mathematical Sciences: Algebraic Topology of Algebraic Varieties; Conformal Field Theory

Aspects of topology of algebraic varieties, closely related with their arithmetic properties, will be studied. Particular emphasis will be on development of new topological invariants (e.g. various versions of motivic perverse sheafs), and on structures emerging in conformal field theories (geometry of loop spaces). This work combines ideas from theoretical physics with others from geometry, using methods which are equally diverse.